I-Corps: Translation potential of carbon dots for battery anode applications

The broader impact of this I-Corps project is the development of carbon-based electronic materials with graphite-like structure derived from consumer plastic. Graphite is listed as a critical material by the U.S. government as it plays a key role in various energy technologies. However, both the mining and synthetic production of graphite consume significant amounts of energy, and large-scale mining is confined to relatively few locations. Synthetic graphite manufacturing is a major source of graphite used for energy applications. Parts of the synthesis occur at extremely high temperature (>2000 oC). Additionally, the raw material for synthetic graphite production is derived from a residue produced during crude oil distillation, which is also a complex and expensive process. The new materials are promising for use as a composite together with silicon to improve the capacity of battery anodes in electric vehicle applications. The solution is also promising for use as a coating to improve the conductivity of electrodes in electronic devices.

This I-Corps project utilizes experiential learning coupled with a first-hand investigation of the industry ecosystem to assess the translation potential of a technology to efficiently transform the consumer plastic, polypropylene, into carbon nanomaterials with graphitic structure, called carbon dots. The purified carbon dots are less than 5 nm in diameter and, through additional processing, can be assembled into larger crystallites (> 50 nm in size) as indicated from powder X-ray diffraction and electron microscopy. The X-ray diffraction patterns indicate a graphite-like structure, which makes it a potential substitute for graphite in various industrial applications with a higher surface-to-volume ratio. In addition, this material has been shown to be electrically conductive with no metal included inside. Understanding the assembling behavior of the carbon dots may lead to a new approach to producing microscale graphite from consumer plastic.